The Pipeline to Purpose Project

This project addresses the national need to strengthen the STEM teacher workforce, one of the most pressing challenges facing American education and a critical component of the Nation’s future economic competitiveness and innovation capacity. Selected from a variety of geographic, educational, and community settings, high school students and matriculating STEM undergraduate majors will be recruited and supported in pursuing careers as STEM educators. Many school districts continue to experience persistent STEM teacher shortages, resulting in high rates of teacher turnover and reliance on provisionally licensed educators. A potentially sustainable solution is to develop a robust pipeline of prospective teachers who are intrinsically and extrinsically motivated, well-prepared, and intentionally committed to the teaching profession. When teacher recruitment emphasizes person-job fit, teacher satisfaction, effectiveness, and long-term retention are likely to improve, helping to reduce chronic teacher shortages. By strengthening the pipeline of highly qualified STEM teachers, the project contributes to the development of the future STEM workforce needed to sustain U.S. economic prosperity, innovation, and global competitiveness.

The project at Norfolk State University includes partnerships with high schools and school divisions experiencing persistent STEM teacher shortages. Project goals include measurable increases in STEM teacher recruitment, program completion, licensure attainment, and retention, as well as the development of an evidence-based and scalable model for reducing barriers to teacher preparation. The project will provide scholarships that enable high-achieving students to complete Bachelor of Science degrees in mathematics, physics, biology, chemistry, and related STEM fields while simultaneously earning state teaching licensure over a five-year period. Increasing the number of highly qualified STEM teacher graduates will strengthen Virginia’s educator workforce and position the University among the Commonwealth’s leading producers of STEM teachers. In addition, the project will investigate evidence-based strategies for improving teacher preparation and persistence. Research activities will explore questions such as: What role do AI-enhanced learning supports play in improving certification readiness, persistence, and successful entry into the STEM teaching workforce? Findings will extend the literature on teacher-job fit, defined as the degree to which teachers possess the professional satisfaction, dispositions, knowledge, and skills associated with effectiveness and long-term career persistence. Formative and summative evaluation will provide continuous feedback for program improvement and assessment of outcomes. Project results will be disseminated to participating school divisions, the Virginia Department of Education, accreditation and professional organizations, university stakeholders, and the broader STEM education community. Findings will be shared through regional, national, and international presentations, including venues such as the UTeach Summer Conference and the Robert Noyce Teacher Scholarship Program Annual Conference. Through scholarship support, strategic partnerships, mentoring, and research, this Track 1: Scholarships and Stipends project seeks to advance evidence-based approaches for recruiting, preparing, and retaining highly effective STEM teachers. Supported by the Robert Noyce Teacher Scholarship Program, the project contributes to the development of a strong STEM talent pipeline and a sustainable educator workforce capable of preparing future generations of STEM professionals.